Ocean-air Exchange of CO and Some Methyl-Halides and Haloforms

The oceans may be a significant source of many trace gases that affect the global environment. Trace gases that accumulate in the atmosphere can change the chemistry and composition of the atmosphere. These changes can lead to climatic effects such as global warming and altered rainfall patterns. Global emissions of trace gases from natural sources are particularly difficult to estimate and little is known about production of gases in the oceans. This project will provide data that can improve our understanding of the role of the oceans in determining the levels of certain trace gases. This project is a follow-up on a supplement to a previous grant that allowed the collection of air and seawater samples during a cruise of the Akademik Korolev in the Pacific. The samples will be chemically analyzed for carbon monoxide, methyl halides, and haloforms. Carbon monoxide is important in that it is a primary species for the loss of hydroxyl radical. The hydroxyl radical, in turn, largely controls the oxidizing capacity of the atmosphere which is responsible for the removal of many trace gases. The methyl halides are generally the most abundant halogen containing trace gases and the oceans are probably their most significant natural source. By using statistical techniques and cluster analysis, the air and seawater concentrations of these trace gases will be correlated with each other and with other parameters such as biological productivity and temperature. Objectives of this project are to delineate the latitudinal distributions of these gases and thus evaluate the distributions of their sources and to estimate fluxes of these gases through the ocean-atmosphere boundary.